Postdoctoral Fellowship: MSPRF: Rigidity and Stability in Geometry and Dynamics

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Karen Butt is “Rigidity and Stability in Geometry and Dynamics”. The host institution for the fellowship is the University of Chicago and the sponsoring scientist is Anne Wilkinson.